Research Experience and Enrichment Program

This project will establish at Hampton University a multi-year Research Experience and Enrichment program for engineering, mathematics, and science students. The aim is to attract students into research, train them, and channel them into graduate programs at major research institutions upon graduating from college. Within a period of five years, 40 students selected from the discipline areas of biological sciences, chemistry, engineering, marine science, mathematics, and physics will participate in this project. Ongoing research programs at Hampton University will form the framework upon which research activities for participating students will be based. The students who participate in this project are provided financial support not only as incentive for pursuing scientific research, but also to help reduce their financial burdens and make graduate school a competitive career option after graduation.